Federal Workforce Capabilities for Biosecurity

This award supports a workshop on Federal Workforce Capabilities for Biosecurity, June 8-10, 2007, Linthicum, MD. The purpose of the workshop is to advance technical understanding of emerging challenges in biosecurity and to develop new strategies for training the Federal biosecurity workforce. The focus of the workshop is on training and assessment approaches that will enhance capability of the workforce to address new developments in biotechnology.